RAPID: Instructional Shifts in Response to COVID-19 and Their Impacts on Classroom-based Undergraduate Research Experiences

Course-based Undergraduate Research Experiences (CUREs) greatly expand opportunities for students to participate in authentic research early in their academic career. Research participation is linked to increased student persistence in STEM, especially for students from groups that are underrepresented in STEM. Thus, by increasing the number and diversity of students who have a research experience, CURES also broaden participation in STEM careers. CURES typically engage student teams in hands-on work in laboratories or field sites. With the outbreak of the COVID-19 virus, the national CURE education landscape quickly and dramatically changed to a fully “online” mode, with limited opportunity for advance planning. Thus, this situation presents a unique and urgent opportunity to explore how CUREs evolve in a new online environment, as well as whether they continue to achieve core CURE educational goals. It also allows for assessment of whether these rapid course changes have equitable outcomes for all students, including first-generation students, students on financial aid, and from different socioeconomic backgrounds. If CUREs are a solution for engaging large numbers of early-stage undergraduates in authentic STEM research, then the feasibility to translate CUREs online must be known. It is important to understand the structure of these newly online CUREs, in what situation they are effective, and who they benefit. The results of this project have the potential to expand understanding of CURE instructional approaches and outcomes, for both practitioners and researchers. Additionally, this unexpected shift to online coursework is an opportunity to engage broader higher education audiences in new thinking about course configuration, online effectiveness, and supports and barriers for online teaching.

The purpose of this project is twofold: 1) capture and analyze how CURE course activities are rapidly translated into online formats; and 2) assess effects of course changes on students with different demographic profiles. It will provide early evidence to answer if, how, and why CURE benefits are realized through the different modality of online teaching. Importantly, this project will not make conclusions about the quality of online CUREs or online teaching overall; instead, it will explore which CURE activities can be readily delivered online, how they get delivered, how students respond, and how this new way of teaching changes/expands how instructors think about CUREs. The present project will use a mixed-methods design to track online implementation of CURE courses in two samples. The first sample will include a diverse set of local CUREs that span multiple STEM departments and have an array of course objectives/structures. This collection of CUREs will afford an in-depth, qualitative case study investigation that will capture and analyze instructors’ thinking, plans, and products, before, during, and after the shift from hands-on, laboratory-based CUREs to ones that are now abruptly online. The second sample will include CURE courses from a national network, which will allow us to explore more broadly and in a more quantitative way, how a large number of instructors transitioned to online. The project will also examine the resulting emotions, motivations, and experiences of students during this transition and how this semester’s student outcomes compare to those from prior years, through analysis of a historical student outcomes database. This approach will provide broad reach and comparison among a relatively homogenous set of CUREs, since all CURE instructors in this network are trained in the same research approach, have similar course objectives, and use similar materials. This RAPID award is made by the Improving Undergraduate STEM Education program in the Division of Undergraduate Education (Education and Human Resources Directorate), using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act.